Path Integral Studies of Electron and Hole Tunneling in Proteins

The complexity of the structure and reactivity of the folded protein molecule presents a formidable challenge to theoretical analysis. Theoretical research in protein chemistry must respond to this challenge in two ways. First, tools must be developed for inquiry specifically designed for the complex, three-dimensional, inhomogeneous and aperiodic nature of protein structures. Secondly, new theories must be forged which realistically treat specific proteins currently under experimental investigation and which will provide results which biochemists and biophysicists can use. Dr. Kuki will apply path integral Monte Carlo techniques to the quantitative analysis of electron transfer interactions in proteins and protein complexes. Electron transfer proteins are crucial components of many bioenergetic pathways in oxidative phosphorylation and photosynthesis. He will develop new theoretical procedures based upon path splicing algorithms, combining density functional theory and quantum path integrals, and pseudopotentials specifically designed for hole-mediated tunneling as well as electron-mediated tunneling.